Conference on Nanoparticles and Nanostructures

To foster cross-disciplinary interaction, a conference in nanoparticles and nanostructure is planned for the period June 16-21, 2002 in Barga, Italy. This is a relatively small conference being organized thought he United Engineering Foundation. The conference title is "Nanoparticles and Nanostructure Through Vapor Phase Synthesis." A mix of synthesis and applications as, outlined below, are planned.

- Thermal and plasma synthesis of nanoparticles
- Particle Cluster formation and growth processes
- Advanced Characterization
- Carbonaceous nanomaterials
- Nanoparticle structure / property relationships
- Catalytic nanostructures
- Nanostructures in drug delivery and biological imaging
- Electronic Devices (single electron transistors)
- Polymeric composite nanomaterials
- Other applications.